Thermodynamics of Polymer Blends

Continuing investigation of the thermodynamics of polymer blends will be based on inverse gas chromatography (IGC). The technique of IGC was perfected and brought to an acceptable level of accuracy in research under NSF grant DMR-8414575. Polymer-polymer interaction coefficients, very difficult to obtain by other methods, will be measured for several compatible blends. Interaction coefficients of incompatible polymers will be studied using random copolymers composed of the same monomeric units as those in the incompatible polymers. Interactions between polymer segments are determined by the same factors that determine polymer-solvent interactions. The latter interactions are convieniently obtained by IGC on homopolymers. A large number of interaction coefficients will be measured on blends, copolymers, and homopolymers and the data analyzed to yield the individual effects important to mixing: contact interactions, specific interactions, equation of state effects, and molecular packing. The experimental base will be expanded by measuring relevant data on low-molecular-weight mixtures; calorimetry, light scattering, and densitometry will be used. The ultimate goal is to develop a comprehensive theory of mixing of polymeric systems which is capable of predicting polymer solubility and compatibility in blends.